Methods for Checking Test Outputs

A test oracle is a means for deciding for any test input whether or not the output produced by the program agrees with the program's specification. This research analyzes the costs and benefits of automated test oracles.